Creating a National Infrastructure of Support for Extended Explorations in Science and Engineering in After-school Programs

EDC and the Lawrence Hall of Science propose an intensive, innovative mentoring and professional development model that will build the capacity of community-based organizations (CBOs) to deliver high-quality science and engineering curricula to children in after-school programs. The program's goal is to alleviate two consistent problems of after-school STEM providers: high turnover rate and the ability to lead/teach high quality science activities. The project will put in place a broad network of trainers in three regions of the country, leveraging the expertise and collaboration of two well-established and trusted national informal education networks. The extensive collaboration involves 14 organizations total including nine science centers (of varying sizes), three state 4-H agencies, the National 4-H Council and EDC.

The primary audience for this project is the trainers (science center, 4-H, others) who currently (or may in the future) train CBO staff. EDC, LHS, and three "mentor" science centers will supervise these trainings and develop the new PD resources designed to improve the quality of training that CBO staff receive from these and other trainers. The National 4-H Council will help coordinate training and dissemination of products through the 4-H national network Goodman Research Group will conduct formative and summative evaluations of the project.

DELIVERABLES: This project will deliver: 1) a model of prolonged training and support to build the capacity of CBOs to lead high quality science and engineering curricula with children; 2) a mentoring model to support and supervise trainers who work directly with CBOs; and 3) professional development tools and resources designed to improve the quality of training delivered to CBO staff.

STRATEGIC IMPACT: This project will impact the national after-school professional development field by (a) demonstrating a model for how science-center, 4-H, and other trainers can build the capacity of CBOs to improve the way they lead science and engineering projects with children, (b) nurturing a cadre of mentor institutions to assist others to adopt this capacity-building and professional-development model, and (c) developing professional development tools and resources that improve the quality of training delivered by trainers to CBO staff.

COLLABORATIVE PARTNERS: The three "mentor" institutions are: (1) the Lawrence Hall of Science, (2) the Science Museum of Minnesota, and (3) the Boston Children's Museum. The six science centers include (1) COSI Toledo in Toledo, OH; (2) Headwaters Science Center in Bemidji, MN; (3) Providence Children's Museum in Providence, RI; (4) Rochester Museum and Science Center in Rochester, NY; (5) River Legacy Living Science Center in Arlington, TX; and (6) Explora in Albuquerque, NM. The three 4-H partners include (1) 4-H New Hampshire, (2) 4- H Minnesota, and (3) 4-H California.